Collaborative Research: Elements: Lattice QCD software for nuclear physics on heterogeneous architectures

Nucleons (protons and neutrons) make up atomic nuclei and are a common building block of all matter in the universe. Understanding their interactions provides insight into the nature of the universe from subatomic to the cosmological scales. To better understand atomic nuclei, as well as to assist current experiments to find new particle physics and to understand particles known as neutrinos, it is important to carry out calculations of nucleons interacting with each other as well as other particles in nature, such as electrons, muons, and mesons. This project develops and distributes software to carry out these challenging computations on the nation’s most advanced supercomputer systems.

The physics of hadron-hadron interactions can be studied using Monte Carlo estimates of path integrals involving quark and gluon fields on a space-time lattice. Baryon-meson and baryon-baryon scattering phase shifts can be computed, yielding important information on hadron structure. Quantities known as form factors which involve the nucleon and the so-called Delta baryon are particularly important since they are crucial to interpreting results obtained in accelerator-based neutrino experiments, such as the Deep Underground Neutrino Experiment (DUNE). New computational techniques have made possible such computations in lattice quantum chromodynamics (LQCD). One goal of this work is to build on past efforts to develop highly optimized software to carry out such calculations on modern Graphics Processing Unit (GPU)-accelerated architectures. In particular, this work focuses on the evaluation of various important correlation functions which involve meson and baryon sources and sinks constructed using software developed in a prior award. The tensor contractions needed in these calculations require program executions having different wall times and numbers of computing processors. Effectively bundling such numerous runs together into a handful of batch jobs on supercomputer systems is crucial in the work flow of these computations. This work will also extend the development of software designed to efficiently carry out this bundling.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the Physics at the Information Frontier Program within the Physics Section of the Directorate for Mathematical and Physical Sciences.